Environmental Liquid Chromatography System

Northland College is purchasing an ion analysis HPLC system for use in several courses focusing on soil and water chemistry. There is an emphasis on the influence of acid rain and global warming on soil nitrogen mineralization and metal ion leaching.